CAREER:Towards Effective Identification of Application Behaviors in Encrypted Traffic

Fabian Monrose
John Hopkins Unversity
0546350
Abstract
Several fundamental security mechanisms for restricting access to
network resources rely on the ability of a reference monitor to
inspect the contents of traffic as it traverses the network. However,
with the increasing popularity of cryptographic protocols the
traditional means of inspecting packet contents to enforce security
policies is no longer a viable approach as message contents are
concealed by encryption. This project encompasses the first major
component of a principled investigation into the feasibility of
protocol identification based solely on those features that remain
intact after encryption---namely, the packet size, inter-arrival and
direction. More specifically, this work attempts to provide a better
understanding of the limits of protocol recognition based on a
thorough statistical analysis and information theoretic assessment of
the available features in protocol behaviors observed in the
wild. Specifically, this project advances the current state of the art
and contributes to the scientific community by building efficient
mixture models for detecting protocols with multi-modal behaviors,
designing practical tools for visualizing behavioral motifs in TCP
sequences, providing new information-theoretic decision policies for
assigning protocol class labels to these sequences, and imparting new
notions for assessing realistic masquerading attacks and the
appropriate defenses.